Investigations of Tornadogenesis, Convection Initiation and the Evolution of the Convective Boundary Layer

Many meteorological phenomenon are controlled and/or influenced by the physics of the convective boundary layer. During the Convection and Precipitation/Electrification Experiment (CaPE) held in Florida in 1991, a collection of very advanced meteorological instrumentation was brought to bear on a variety of meteorological problems including those of the boundary layer. Using data from the CaPE, the Principal Investigator will conduct research with the following five objectives: study of a waterspout with Doppler radar and cloud photogrammetry; detailed analysis of the sea breeze phenomena with emphasis on synoptic flow regime, along front variation and convective initiation; evolution of horizontal convective rolls that develop within the boundary layer with emphasis on along roll variation of enhanced cloud development; analysis of convective initiation resulting from the collision of two boundaries; analysis of air mass storms in order toe assess the generality of a generalized thunderstorm conceptual model recently proposed by the Principal Investigator.